ADVANCE Institutional Transformation Award

The goal of this project is to contribute to the development
of a national science and engineering academic workforce that
includes the full participation of women in all levels of faculty
and academic administration, particularly at the senior academic
ranks, through the transformation of institutional practices,
policies, climate and culture.

With this award, Hunter College will design and implement a program
to improve the institutional practices and culture
that affect the hiring, retention, promotion, salary, and
professional development of women in the natural and social
sciences. As part of the largest public urban university in the
nation, Hunter College will be a model for the other CUNY
colleges and for urban public universities generally. Goals include: a) to develop,
test, and disseminate measures for identifying, measuring, and
reporting hidden and subtle, as well as visible and obvious,
indicators of gender equity; b) to correct unintended institutional
practices that work against the advancement of women scientists;
c) to educate administrators and other evaluators, via workshops and
training manuals, about inadvertent gender biases in evaluating
and recognizing scientists' contributions and about strategies
for equalizing men's and women's ability to advance; d) to develop
interventions to advance junior and mid-level women scientists
via a sponsorship program.

This project is supported by the NSF ADVANCE Program. The
overall mission of the ADVANCE Program is to increase the
participation of women in the scientific and engineering
workforce through the increased representation and advancement of
women in academic science and engineering careers.